Center for Functional Nanoscale Materials

The Center for Functional Nanoscale Materials at Clark Atlanta University (CAU) will foster
multidisciplinary and interdisciplinary fundamental research discoveries, innovation, and education in the
rapidly developing and important field of nanotechnology. The Center's research projects will encompass
the Preparation and the Photocatalytic Reactivities of Nanostructured TiO2/Al2O3 Composites; the
Syntheses and Studies of the Properties of Functionalized Carbon Nanotubes, Nanoporous
Multifunctionalized Organosilicates, and Biofunctional Nanoscale Materials. The Center will
significantly enhance the research capacity in nanotechnology at CAU by providing support for students,
technical and administrative support for faculty, and upgrades to equipment for carrying out the research
and education enterprise. CAU will provide salary support for a new faculty position in the area of
nanotechnology. The Center will increase the number of talented minority students staying the course in
the science and technology pipeline by providing scholarships for promising high school students to enter
the program as Nano-scholars and by providing competitive stipend and tuition support for graduate
students. The Center will allow CAU to leverage its participation in other NSF STC programs and extend
opportunities for research in nanotechnology to undergraduate and graduate students.